Polynomial Optimization and Convex Algebraic Geometry

This study focuses on problems from polynomial
optimization and convex algebraic geometry. The latter is a new
research area that concerns convex sets and convex hulls of sets that
are described algebraically and arise in optimization. The key tool is the use of efficient algorithms in semidefinite programming, a branch of convex optimization that is used in polynomial optimization. The
first set of questions studies the general phenomenon of when a given
convex body is the linear projection of a slice (by an affine plane)
of a closed convex cone. This phenomena is central to all
lift-and-project methods for discrete and polynomial optimization. This study
provides a uniform view of all lift-and-project
methods via new notions of cone factorizations of certain operators
associated to the convex body. The investigator and collaborators have
recently constructed a new hierarchy of convex relaxations for
algebraic sets called theta bodies. Various open questions about these
bodies are posed. The methods
from polynomial optimization and convex algebraic geometry can be applied to problems
from computer vision. Here the application is primarily to object reconstruction from
images taken by multiple cameras.

The work of the PI with her collaborators improvies our understanding of the algebraic and geometric
structures that underlie optimization problems that involve
polynomials. Such problems have a wide array of applications and admit
methods from both the algebraic and analytic sides of
mathematics. This research considers both improvements in our understanding of the theoretical aspects of polynomial optimization, and the application of these methods to problems in computer vision.